Two Kinds of Coronal Mass Ejections and Their Solar Cycle Dependence

This project is an observational and data analysis project to examine and understand the differences between the two types of coronal mass ejections (CMEs). CME events during solar cycles 22 and 23 will be identified using the coronagraph data from Skylab, the Solar Maximum Mission, Solwind, and SOHO. Groundbased coronal measurements from the Mauna Loa coronagraph will also be used. The association of CME events with active regions and with quiescent prominences will be studied. The observations will be used to test different models of CME eruptions.